Qualitative Analysis of Complex Dynamical Systems

This project will attempt to establish local and global qualitative results for several classes of artificial feedback neural networks for associative memories. These results will be used in a systematic way to establish synthesis results. The P.I. will consider continuous-time and discrete-time neural networks which may be endowed with linear or (higher order) nonlinear interconnecting structures and with the usual sigmoidal models or higher order nonlinear models for the neurons (e.g., staircase nonlinearities). Global qualitative results will address the distribution of equilibria in the state space, global stability, and the like. Local qualitative results will address the stability properties and estimates of the domain of attraction of equilibria, rates of convergence of trajectories, and so forth, Synthesis results will address learning and forgetting algorithms, storage capacity, etc. The P.I. will also use these neural networks results to establish analysis and design techniques for general dynamical systems (including control systems) endowed with saturation nonlinearities. Such systems are pervasive in science and technology. In addition to local and global qualitative characterizations, we seek results for controllability, observability, stabilizability, etc., in the case of control system.